Exploring Source Codes for Network Technologies

Network systems and applications, including both established technologies
like wireless voice networks, the internet, and video services and emerging
technologies like wireless multimedia, distributed computing, and ubiquitous
computing, are undergoing explosive growth. While these systems differ in
many ways, a key bottleneck is common to all of them: The utility of each
of these technologies is limited by the amount of information that can be
sent through the corresponding network. Since bandwidth is scarce, making
the best use possible of the data rates available is critical. Thus use of
efficient data representations, or source codes, is imperative for maximizing
system performance in network technologies.

This research considers new paradigms for source coding in network systems
and compares those paradigms to existing approaches. The analysis involves
theoretical proof of concept, demonstration of practically achieved gains on
real data sets, and development of efficient codes to achieve those gains.
Current work focuses on source coding for broadcast systems. Broadcast
systems play a central role in all of the above network technologies, where
one system node ``broadcasts'' both common information (intended for all
users) and specific information (intended for a subset of the users) to the
other nodes in the network. Existing methods for source coding in broadcast
systems use collections of traditional (single-transmitter, single-receiver)
source codes within the (single-transmitter, multiple-receiver) broadcast
system. Current work aims to demonstrate and quantify the gains achieved by
abandoning this approach in favor of source codes optimized for broadcast
systems.